Calculating the Essential p-Dimension of the Finite Simple Groups

This award is made as part of the FY 2023 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Hannah Knight is “Essential p-Dimension of the Finite Simple Groups". The host institution for the fellowship is the University of California – Los Angeles, and the sponsoring scientist is Alexander Merkurjev.